Earth Math Phase 3; Calculus and Statistics for a New World

Using modeling and real world data as motivation, a two-course sequence which integrates calculus and statistics is being developed, tested, and evaluated. These courses are designed to improve the mathematical knowledge and skills of entering college students outside of science, mathematics, and engineering. The first course uses elementary concepts from statistics and calculus to construct and analyze algebraic functions which model real data; the second introduces more sophisticated functions and uses more advanced methods from calculus and statistics. The first course stands alone as a core course; the second can be a meaningful replacement for introductory statistics or "business" calculus. The sequence, which is being piloted at both Kennesaw State College and Portland State University, exposes students to mathematical and statistical concepts and tools used in the workplace. Both courses make extensive use of computers to gather data and analyze real world problems. In the spirit of the Earth Algebra and Earth Math projects, previously funded by both the Fund for the Improvement of Post-Secondary Education (FIPSE) and the NSF, the sequence incorporates the principles of the NCTM and AMATYC Standards. Dissemination efforts include a textbook, workshops, MAA minicourses and posting of some materials on the Internet. The assessment activities are investigating the feasibility of a technology-intensive integrated calculus/statistics sequence which uses modeling and data analysis to motivate the mathematics. This grant supports specific materials development and dissemination activities, and complements core funding for the overall project by FIPSE.